Unsupervised, Non-stop Extraction of Information from the World Wide Web

A long standing dream of Artificial Intelligence has been to create an
autonomous learner that continuously increases its knowledge by
reading a wide variety of texts. To date, this kind of knowledge
acquisition has been attempted only rarely, and typically at small
scale. Yet the Web has made a vast library of online text readily
accessible.

In response, this project investigates a family of unsupervised,
domain-independent, scalable systems that learn from the Web in an
open-ended fashion. Such systems not only extract information but
also extend their ontology, incorporating new classes and relations.
Furthermore, the systems' learning is recursive -- once new relations
are learned, the system builds on these to learn new relations,
relations between relations, and so on. The project investigates the
automatic control of this process, and analyzes both the power and
limitations of this form of learning.

The project will impact both the natural language processing (NLP) and machine learning (ML) communities
by investigating fundamental issues in learning from text. In
addition, the systems developed could lead to a new generation of Web
search engines that improve information access, achieving a broad
societal and economic impact.